Seismic Torsional Effects In Multistory Buildings

This research study is a joint collaborative research effort between an academic research unit and a professional design office to investigate seismic torsional effects in multistory buildings. Two projects (BCS 9020394 and BCS 9116089) are combined into a joint cooperative study of the referenced topic area as a single research effort. By means of analytical models and a probabilistic approach, this research study evaluates the inelastic seismic response of torsionally unbalanced structures, with a view towards developing more rational methods of design. Knowledge of the seismic response, calculated for seismic motions defined by ensembles of normalized real and synthetic accelerograms, are used to gain physical insight in the examination of a wide range of elastically-based procedures widely used in current codes for torsional effects in seismic design. The validity of these procedures are assessed by first designing the structural models according to the elastically-based "static" and modal superposition rules, followed by an explicit evaluation of the inelastic response of these models. A torsionally unbalanced structure will be judged to have been properly designed if the probability of exceedance of a seismic response parameter (story drift or component ductility demand) does not exceed that for the corresponding balanced (symmetric) system. Criterion established will help identify deficiencies in current practice and will provide a method for testing and modifying systematically different design rules until satisfactory probabilities are obtained. Results from this project provide critically important data on the torsional effects in multistory buildings induced by seismic forces.